Human sensory Psychology Laboratory

This award will help fund a computerized undergraduate laboratory in human sensory processing. This laboratory will provide the tools for a wide range of experiments in audition and vision that were not previously possible. It will also provide a long lasting and versatile base for future experiments in the skin senses and motor control. Twelve IBM/ATs have already been acquired through a grant from IBM for an undergraduate computer laboratory. Funding of this proposal will enable seven of these computers to be quipped with interfaces for the generation and presentation of auditory and visual stimuli and the collection of data. Each of the seven computers will have one combined digital-to-analog and analog-to- digital converter, an amplifier and headphones, an image frame store, display and software. The laboratory will train undergraduates in modern computer laboratory skills, including programming, data analysis and instrument control. Much of the recent progress in understanding sensory processing has been made possible by computer technology. The students will experience some of the excitement of these contemporary research issues in sensation and perception. Student will have the opportunity to develop individual research projects that address current issues in sensation and perception. The grantee institution is matching this NSF award with funds from non-Federal sources.